On the Role of Gradients in the Postlocalization of Deformation and Damage: A Selforganization Approach

This is a proposal to study deformation patterning and plastic/damage instabilities using nonlinear stability analysis. The key element will be the inclusion of higher strain gradients in the constitutive equations. The gradients prevent the loss of ellipticity of the governing equations.